Novel Separation/Extraction Using Cyclic Lactams

CTS-9510190 Pethica Columbia Univ. The potential of using cyclic lactams for separation of organics from aqueous solutions will be investigated. Preliminary data indicate that cyclic lactams from micelles, exhibit a lower consulate temperature (LCT) with water, and have substantial capacity to solubilize aromatics such as pyrene. The phase diagrams of alkyl-N-pyrrolidinone/water and partition coefficients will be measured for selected solutes. Similar studies will also focus on a liquid alkene-grafted polyvinyl pyrrolidinone that is water-insoluble and has low interfacial tension. Extraction of the solutes will be performed by changing temperature or by using mechanical dispersion of the liquid polymers followed by centrifugation. The research may lead to the development of low-toxicity, biodegradable and non-volatile solvents for the recovery of biochemical from fermentation broths and the removal of environmentally undesirable chemicals from aqueous solutions.